CAREER: Amyloid fibril formation in bulk solution and on supported phospholipid bilayers

0644826 Moss The project will explain the mechanism of amyloid fibril aggregation. Three aims are proposed: 1) screen compound libraries for inhibitors to amyloid fibril aggregation; 2) use the effective inhibitors to probe the aggregation processes in bulk solution and 3) on phospholipid surface. This work will involve a series of biochemical and biophysical analytical tools. The education program consists of a number of components: a caregiver shadowing program, providing lab research opportunities for undergraduate students, developing biomedical engineering courses, and mentoring minority and women students.

The project will focus on the amyloid-beta protein which is a primary component of plaques found in Alzheimer's patients. This research will likely advance the knowledge of protein aggregation and potentially give rise to more effective treatments for Alzheimer's disease.